Engineering Research Equipment Grant: Composite Manufactur-ing and Testing Facility

A programmable hotpress and a miniclave system and testing facility for advanced composite materials will be used to investigate thermoset and thermoplastic polymer matrix composites. The goals of the research are to study the manufacturing aspects of these materials and the minimization of fabriction flaws, delaminations, and "hotspots." Samples will be fabricated, and the manufacturing process will be investigated and optimized.